Computer Graphics for Majors and Non-Majors.

The project introduces both majors in computer science and non-majors to topics in computer graphics through the introduction of two new courses: one for juniors and seniors in computer science and one for non-majors at an introductory level. The equipment that supports this project includes: SUN 3/60 color workstations; a SUN color monitor, color board and mouse for a file server; a 280 megabyte disk drive; SUN graphics board and enhanced graphics processor; network cabling; and, associated software. This award is being matched by an equal sum from the grantee.